CISE Research Instrumentation

EIA-9985991
Doug Burger
University of Texas-Austin

CISE Research Instrumentation

The Department of Computer Science at the University of Texas will purchase a cluster of high performance, multigranular workstations, dedicated to support research in computer and information science and engineering. The equipment will initially be used to support four research projects in the department.

The first project will use the cluster for detailed evaluations of future high-performance microprocessor designs. The second project will use the cluster to improve algorithms for reconstructing large evolutionary trees, with applications in evolutionary biology, pharmaceutical design, and linguistics. The third project will use the cluster to improve I/O -intensive data mining simulations using numerical techniques. The fourth project will develop software support for scientific cluster-based computing, including support for effective heterogeneous job scheduling, low-overhead application fault-tolerance, and run-time dynamic load balancing.

The cluster will consist of heterogeneous machines, with varied quantities of memory, disk, and processors per machine. We will support several types of jobs submitted through a common interface: uniprocessor jobs, shared-memory parallel jobs, PVM message-passing jobs, and distributed-shared memory jobs. Our long-term goal is to build a centralized but scalable resource that can meet the needs of numerous scientific workloads concurrently.